LEASE: International Antarctic Centre Land and Buildings

This action provides for the lease of facilities for a staging base in Christchurch Nw Zealand for the United States Antarctic Program. The facilities will ultimately include offices, library, communications facilities (including satellite ground station and antennas), warehouses and logistic facilities, medical facilities, hotel facilities (including sleeping rooms, restaurant, and tavern), recreational and sports facilities, auditoriums, meeting halls and display space, public information facilities, aircraft facilities (e.g., hangars, maintenance facilities, and parking aprons), and an air passenger terminal, all in support of the United States Antarctic Program. Services provided include utilities, internal vehicle roads and parking, grounds-keeping, and facility maintenance. The contract may also include the providing of hotel services. The facilities provided under this action include offices, library, warehouses and logistic facilities, and an air passenger terminal. This action provides funding for the portion of the lease occurring in FY 1990 (September 17, 1990 through September 30, 1990) and for the interior finishing of the spaces leased. Subsequent actions will provide funding for the remainder of the lease.